Computer Science, Engineering and Mathematics Scholarships

This project provides 5 scholarships for talented, but financially challenged students pursuing baccalaureate degrees in computer science, engineering and mathematics. The students are strongly encouraged to participate in undergraduate research and to present their results to related academic and professional organizations. Additional, they are encourage to become mentors in the Upward Bound/Math Science program and to assist local industry partners in solving specific problems related to their course of study. Each scholarship recipient receives enhanced student support, in the form of mentoring opportunities and a targeted job fair, in addition to the college's existing support through the residential house system, freshman advising program and academic honor system.